Travel: NSF Student Travel Grant for 2026 IEEE Information Theory Workshop (ITW)

The IEEE Information Theory Workshop, is a well-established conference of the IEEE Information Theory Society, having been held annually for over two decades. The 2026 conference will be focused on the areas of information theory in machine learning, quantum information and coding, and coding for 6G. The conference offers a unique opportunity to its participants for sharing of scientific discoveries related to information and learning theory, quantum information theory, machine learning and statistics, coding theory, and their applications, as well as interactions between information theory and broader areas such as artificial intelligence, biology, finance, and signal processing.

This award will enable participation of roughly 30 students enrolled in US institutions. Such participation will have a positive impact on both information and coding theory research in US institutions and workforce development. It will contribute to the preparation of the next cadre of engineering professionals who can advance and ensure integration of communication, data science, machine learning, and quantum information and coding, and network information and coding. Award recipients will be better positioned to contribute to academic, industrial, and governmental research efforts across sectors such as information theory, coding theory, machine learning, quantum information and coding theory, cloud computing, and data privacy.